REU: Summer Undergraduate Affirmative Action Research Program

This is a Research Experiences for Undergraduates project. It provides research experiences for ten students at the University of California at Davis. Students will participate in projects involving genetics, environmental and agricultural sciences.